Collaborative Research: Hierarchically Assembled Viral-Synthetic Hybrid Microentities

This award by the Biomaterials program in the Division of Material Research for a Collaborative proposal from Tufts University (Lead) and Massachusetts Institute of Technology (non Lead) is to develop and understand a new method for manufacturing of biomaterial-based microscale entities with biosensing capabilities. This project is based on the hierarchical, high-throughput assembly of functionalized tobacco mosaic virus (TMV) nanotemplates with hydrogel microparticles via nucleic acid hybridization. This approach enables seamless integration of nano-, bio- and synthetic materials with unprecedented density, selectivity, programmability and orientational control. The significance of the project is that the new multiplexed sensing platforms will integrate hydrogel particles with the biofunctionality of TMV via highly programmable biochemical interactions to achieve features and performances beyond what is possible with individual technologies or mere addition of the two. Furthermore, the research will pave the way for moving beyond 2D patterning of viruses on surfaces and move this into 3D particle environments. The broad impact of this project is further enhanced by strong educational components such as extensive recruitment and exchange of undergraduate researchers, exchange lectures and shared research experience between MIT and Tufts University. As a part if this project, educational videos on nanotechnology and self-assembly for K-12 students and teachers will be available online via a public radio station in the area as part of the National Science Digital Library.

The ability to simultaneously assay for multiple target molecules in a complex mixture in a high-throughput capacity is an unmet challenge. This project will tackle this by integrating harmless viral templates and polymer microparticles to create multiplexed sensing systems by nucleic acid hybridization. This research is important for the general health and safety of the public in that the technology will pave new ways to rapidly monitor food pathogens, biological threats and environmental hazards. The research will also lead to ways in designing new methods to process viruses for use as high-value added materials. The education of the public will further benefit from this project by exposing a large number of undergraduate and K-12 students to cutting-edge research projects. In addition, educational video clips will be freely available to students and science teachers at grade schools from National Science Digital Library.